The Crimson Scholars Program

This program supports 45 scholarships for upper division students in computer science and mathematics and graduate (M.S.) students in mathematics. Priority is given to students traditionally underrepresented in the computer science and mathematics fields such as women, ethnic minorities, and persons with disabilities. Enriched experiences for these students include activities such as faculty mentoring, peer mentoring, honors program, industry internships, and research experiences.